Doctoral Dissertation Research in Geography and Regional Science

Rock weathering is an often underestimated yet ubiquitous force, sculpting and changing the landscape, predominantly influenced by rock composition and environmental factors. Previous research has recognized the importance of obtaining quantitative data on the weathering rates of rocks. While research has shown that lichen overgrowth disrupts and erodes the substrate, little quantitative data have been collected on this weathering phenomenon. Lichens represent the dominant biological species on eight percent of the Earth's surface. Their ubiquitousness may establish lichens as a greater pedogenetic factor than previously understood. This project will investigate the quantifiable effect of lichen overgrowth on substrate surface weathering , removal, and potential pedogenesis. Research will be conducted in the Petra region of Jordan to determine lichen- induced erosion in controlled circumstances from the late Pleistocene to the present. Regression models will be developed and tested to determine rates of weathering under differing conditions of time, exposure of the rock to sunlight, proximity to surface, location of water flows, and other environmental variables. Radiocarbon dating and timing of human carvings in sandstone will be used to establish when weathering took place. This study should fill several missing niches in the weathering literature by connecting the factors responsible for lichen growth, by providing information on the process by which lichen alters rock, and by estimating the quantity of weathered by-products. Knowledge of the quantity of substrate weathering over time should inform archaeological research on lichen induced alteration of petroglyphs and geoglyphs, pedological research on substrate change into pedogenetic material, lichenology through the development of a potential dryland lichenometric growth curve, and geography through an assessment of spatial variability of weathering rates.